Experimental Research in Graph Algorithms and Theory

The primary goal herein is to develop effective tools for experimental work in graph algorithms and theory. The lack of such software and techniques inhibits the use of efficient but sophisticated graph algorithms and therefore inhibits basic research in graph algorithms and theory. This includes evaluating current graph packages, developing software prototypes for new approaches, exploring object- oriented language issues for describing graphs and graph algorithms, and exploring efficiency issues such as on-line algorithms, geometric embeddings, and large data sets. To date, very little of this basic work for graph software has been done. A second goal is to develop the analytical techniques necessary for experimental work on graphs. This includes algorithm animation and performance verification.